Vibrational, Orientational, and Conformational Dynamics of Molecules in Solution

In this award, funded by the Experimental Physical Chemistry Program of the Chemistry Division, Prof. Andrei Tokmakoff of the Chemistry Department of the Massachusetts Institute of Technology and his graduate student colleagues will study the vibrational orientational and conformational dynamics of biomolecules in solution with two-dimensional infrared (2D-IR) spectroscopy. The ultimate goal of this research is to develop new tools with which to study protein structure and dynamics.

Besides the broader scientific impacts of the research being supported, the research students working on these projects will gain experience with advanced laser techniques. Prof. Tokmakoff also maintains a clearinghouse of 2D-IR data on his website, and his course materials are made available through MIT's OpenCourseWare initiative.